Illinois Louis Stokes Alliances for Minority Participation - Phase III

Illinois LSAMP Phase III

The Illinois Louis Stokes Alliance for Minority Participation (ILSAMP) traces its origin to the
collaboration of several institutions in the Chicago area in 1993. The ILSAMP is a diverse group
of public and private institutions in urban, suburban and rural settings: Chicago State University
(CSU), lead institution, University of Illinois at Chicago (UIC), Northeastern Illinois University
(NEIU), DePaul University (DU), Illinois State University (ISU), Southern Illinois University at
Edwardsville (SIUE), Southern Illinois University at Carbondale (SIUC), Illinois Institute of
Technology (IIT), and Governors State University (GSU). Nine community colleges and
Argonne National Laboratory, (ANL) complete the Alliance. These institutions are bound
together with a vision of establishing a statewide coalition dedicated to increasing the number of
underrepresented minority students in science, technology, engineering, mathematics, and
science education (STEM).

During Phase I and II the Alliance focused on establishing a management structure and programs
to implement a comprehensive plan to increase the number of underrepresented minority
students successfully completing baccalaureate degrees in STEM by improving the quality of
undergraduate education. Significant progress was made in the number of B.S. degrees awarded
to underrepresented students by ILSAMP institutions in STEM disciplines. From 1993 through
2002 the number of STEM degrees conferred upon minority students increased by 85% (228 to
423).

The success of Phase III will be measured by the extent to which ILSAMP can: 1) completely
institutionalize the activities that proved successful during Phase I and Phase II; 2) further
increase the number of underrepresented minority students who graduate from programs in
STEM disciplines; and, 3) intensify student progression to graduate school through preparation
and the development of pathways to the Ph.D. for STEM baccalaureate recipients.

In order to accomplish Phase III objectives, the Alliance will utilize strategies to strengthen 1)
community college bridge programs to ease the transition for transfer students and the
preparation of first time freshman; 2) faculty and peer mentoring to help retain students in STEM
disciplines; 3) supplemental instruction (study groups, tutorials, workshops, study skills training)
to bolster students. academic preparation; 4) academic year and summer undergraduate research
and external internships to develop students for graduate school; and 5) opportunities to develop
students. writing and oral presentations skills. Information concerning the program will be
disseminated via publications, presentations and web pages.